NSF Partnership in the Center for Advanced Computing and Communication

ABSTRACT
EEC-9980291
SNYDER

This continuing award funds the multi-university Industry/University Cooperative Research Center (I/UCRC) for Advanced Computing and Communications for a second five-year period (in accordance with Announcement 97-164). The lead research site is at North Carolina State University with another site at Duke University.

The I/UCRC's research agenda address 1.) Fault Tolerant Systems, 2.) Symptom Based Fault Management in Software Systems, 3.) Microsystems, 4.) Classification on a Remote FPGA Based Custom Computing Machine, 5.) Efficient Simulation of Rare Events in Communication Systems and Networks Using DPR, 6.) Faster and More Reliable Wireless Communications Using Physical Channel Modeling, 7.) Networking, 8.) MTCP: TCP-like Congestion Control for Reliable Multicast, 9.) Midlevel Support for Internet 2 Multicast Application, 10.) Adaptive Scheduling with Statistical QoS Guarantee, 11.) Assessment and Management of Application-Level Quality of Service, 12.) A Protocol for Description of End-User Quality of Service, 13.) Operating System and Middleware Support for Real-Time Client/Server Systems, 14.) Differentiated Services and Traffic Engineering in Multi-Protocol Lable Switching Network, 15.) The Availability, Capacity and Performance (ACP) in Wireless Communication Networks, 16.) The Effect of Web Caching on Network Planning, 17.) Secure Network Performance Research, 18.) Image Processing, 19.) Implementation of Hardware for Image Display and Processing, 20.) Image Segmentation using 3-D Active Contours.